Using Computers to Teach Symmetry, Abstract Algebra, and Discrete Algorithmic Mathematics

Two five-day summer workshops concerned with the development and use of computer software in the instruction of core mathematics courses will be conducted for 50 undergraduate mathematics faculty. The first workshop will provide opportunities for undergraduate faculty to explore key concepts from group theory including transformation groups, composition of transformations, commutativity and noncommutativity, and group extension. The second workshop will focus on discrete algorithmic mathematics. Both workshops will combine classroom lectures and discussion with extensive hands-on computer work by the participants.